Patterns and Processes in a Non-Ecotone Hybrid Zone

Non-technical Summary, Grubb T. IBN-9522064 Patterns and Processes in a Non-ecotone Hybrid Zone. Recent advances in molecular genetics have spurred interest in hybrid zones. Work has focused on specifying the width of hybrid zones, searching for correlations between the locations of such zones and environmental clines, and examining hybrid-zone dynamics through time. Progress has been slower in describing behavioral and genetic processes responsible for the observed patterns. This proposal focuses on behavioral and genetic factors maintaining the hybrid zone between two small passerine birds, the Carolina chickadee (Parus carolinensis) and the black-capped chickadee (Parus atricapillus). The project will assess experimentally whether a hybrid zone is maintained by differential reproductive success of hybrids to environmental factors or by genetic incompatibility of hybrids. The findings of this study should elucidate fundamental evolutionary processes involved in speciation.